III: Small: Efficient Ranking and Aggregate Query Processing for Probabilistic Data

When dealing with massive quantities of data, ranking and aggregate
queries are powerful techniques for focusing attention on the most
important answers. Many applications that produce such massive
quantities of data inherently introduce uncertainty in the same time,
for example, probabilistic match in data integration, imprecise
measurements from sensors, fuzzy duplicates in data cleaning,
inconsistency in scientific data. Hence, the importance of these
queries is even greater in probabilistic data, where a relation can
encode exponentially many possible worlds. Uncertainty opens the gate
to many possible definitions for ranking and aggregate queries. This
project systematically examines the underlying properties associated
with the rich semantics of ranking and aggregate queries for large
amounts of probabilistic data. More importantly, this project
investigates the issue of how to design novel and scalable algorithms
for processing these queries efficiently in various settings, such as
the offline, centralized environment, distributed systems and the
streaming model.

With the emergence of probabilistic data in many important application
domains, the demand for understanding and processing the ranking and
aggregate queries efficiently from the scientific community and beyond
(e.g., government and military agencies) is expected to intensify in
the coming years. The results of this project lay down a firm
foundation for this important problem.

For further information, such as publications, data sets and source code,
please see the project website at http://www.cs.fsu.edu/~lifeifei/rankaggprob